U.S.-Czech Research on Flow Karotyping and Sorting of Translocations in Maize

9423154 Galbraith This U.S.-Czech research project between Dr. David Galbraith of the University of Arizona and Dr. Jaroslav Dolezel of the Czech Institute of Experimental Botany will examine procedures for cell cycle synchronization in meristem root tip cells, isolation of condensed chromosomes from synchronized cells arrested in metaphase, and the flow sorting of these chromosomes. The objective of this collaborative work is to construct chromosome- specific gene libraries in Zea maize, using flow cytometry. Results should contribute to our knowledge of chromosome separation techniques which will be widely useful in future research on plant strains carrying advantageous translocations. This project in plant biology fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence. ***